National Microelectronics Education Clearinghouse

Microelectronics technology is a large and diverse field generating an increasing body of knowledge, in the form of new design methodologies and software applications, for use in microelectronics education laboratories. These research results are now being applied to the education process at only a small number of United States universities. The current complexity associated with maintaining design laboratories himders the widespread introduction of microelectronics curricula at many institutions. Better packaging for software, and information tailored to the educational VLSI lab, allows many more universities to offer these types of programs, while also providing a better framework for introducing future microelectronic research results into the educational environment. The grantee provides funds for this project that more than match the NSF award.